Curation of the Wichita Mountains Wildlife Refuge Herbarium Collections at the Cameron University Herbarium (CAMU)

An award has been made to Cameron University under the direction of Dr. Michael T. Dunn to integrate a collection of plant specimens from the Wichita Mountains Wildlife Refuge Herbarium into the Cameron University Herbarium. New cabinets will be purchased for safe storage of plant and paleobotanical specimens. The flora of the wildlife refuge represents a unique snapshot of floral diversity in the area over the past few decades. Students will be hired to assist with entering data into a database for plants from the refuge. The integration of the two collections will safeguard the specimens being incorporated and enhance the value of the college's herbarium for teaching and research.